Efficient Estimation in Semiparametric Models

The Principle Investigator proposes to continue his research program
on efficient estimation in semiparametric models with an emphasis
on non- and semiparametric regression models, on bivariate models with
partial knowledge about the marginals, and on time series models.
Special attention will be paid to the possibility of
(efficient) root-n consistent estimation
of curves such as stationary densities and conditional expectations in
time series models with independent innovations.
Work on regression models will focus on diagnostics and
on imputing when responses are missing at random.
In connection with the latter fully imputed estimators will be studied.
Such estimators impute not only the missing but also the observed responses.
Current work by the Principal Investigator suggests that the
fully imputed estimator is typically better than the partly imputed estimator,
which only imputes the missing responses.
One goal of the research is to prove this conjecture and
to show that fully imputed estimators can even be made to be efficient.
The work on bivariate models will deal with
fine-tuning results for known and equal marginals obtained so far,
and on extending such results to more general models
including those in which the marginal distributions are
linked through a parameter.
Work on two monographs, one on efficient estimation in regression models
and the other on efficient estimation in time series models, is also planned.

The proposed research will advance the theory of efficient estimation in
semiparametric models and will provide more efficient ways of analyzing
data in many concrete problems. Since semiparametric models are
widespread in many fields that use statistics, the proposed research will
have an impact on all these fields. For example, results on time series
and Markov chain models have applications in econometrics and mathematical
finance; results on bivariate models have applications in actuarial sciences
and in medical research; results on imputing are useful in medical studies.
The planned monographs are intended to disseminate some of the research
from the proposed research to a wider audience.